A probabilistic fault system model based on a cross-validated, second-order damage evolution framework

Large continental fault systems, such as the San Andreas in California, produce some of the most damaging earthquakes. Earthquakes happen when the rock on either side of a break in the crust suddenly shifts, and scientists have built many maps and models of these faults to help estimate where earthquakes are likely. Yet major earthquakes sometimes occur on faults that were not mapped, or they spread between fault segments in ways that were not expected. A great deal is still not understood about the behavior of fault and networks of broken rock. This project develops a new kind of model of fault networks that treats this uncertainty directly. Rather than describing only the average shape and behavior of a fault, the model also captures how faults vary from place to place and how they change and respond over time. This work serves the national interest and society with better estimates of earthquake hazard, important for public safety, building standards, and the insurance and risk industries. The project also trains a student, helping to prepare the next generation of the United States science and engineering workforce.

Continental transform fault systems pose significant risks to society, and substantial effort has gone into developing fault geometry models for seismic hazard assessment. Large earthquakes frequently occur off mapped active faults or link segments in unanticipated ways, and uncertainties remain regarding fault behavior throughout the seismic cycle. The project pursues four aims: to supplement earthquake catalogs with new small event focal mechanisms and rupture complexity metrics; to analyze statistical relationships among seismic, geodetic, tectonic, and laboratory constraints on fault zone roughness and network structure; to identify and fit the simplest set of physically consistent network evolution laws that can capture these observations; and to deploy a probabilistic fault model that reflects this damage law and can be tested against independent data. The resulting fault network description is second order, capturing both the mean damage and variations from the mean for fault roughness and temporal response of the network.